XYZ on a Chip: Cellular Electrophysiology on a Chip

0089018
Gillis
The objective of the proposed research is to replace the patch-clamp pipette with an aperture on a microchip and to replace the carbon fiber with electrochemical electrodes fabricated on microdevices. The specific objectives are to: (1) record the current through the cell membrane using microchip technology, (2) measure secretion from individual cells with high time resolution using electrochemical electrodes constructed on a microchip, and (3) automatically target individual cells to electrophysiological probes on the microchip. This award is co-funded by the Division of Engineering Education and Centers, the Division of Chemical and Transport Systems, and the Division of Bioengineering and Environmental Systems.